A Personalist Approach to Estimating Populations of Institutions

More than 10 million U.S. businesses and other institutions spend over two trillion dollars per year purchasing goods and services. Yet many studies have shown that over 70 percent of the money business and industry spends on new product development is spent on products that are never commercially successful. Better quality and more timely research would help this market operate more efficiently and allow U.S. suppliers to be more effective in a global economy. The recommended award will support the final (Phase II) stage of a project funded under the Small Business Innovation Research Program. In Phase II, research will be completed on a methodology for industrial market research based upon an approach to institutional estimation known as "Bayesian," in which heavy reliance is placed upon prior judgmental estimates of sources of error. Accumulated experience in application will provide a valuable capital stock of knowledge and expertise that has proven commercially valuable in other areas of market research. Specific developments will include institutional data bases along with user interfaces and analytic algorithms for performing estimation studies, and the actual performance of such studies for purposes of evaluating internal (logical) consistency and external validity, including economic valuation. The ultimate aim is to provide a commercial service for the design, evaluation, and interpretation of institutional estimation studies employed in industrial market research. Users and practitioners of industrial market research would be offered both the materials and know-how for applying innovative analytic technology in conjunction with complementary survey techniques, sampling frames, and data resources. Given that quantitative institutional research accounts for billions of dollars each year, the potential market for such a service is very large.